Joliet Junior College Physics Enhancement Project

The main goal of this project is to improve the learning, retention, and application of physics concepts and principles by students enrolled in physics classes at Joliet Junior College (JJC). This is being accomplished by introducing a series of new experiences using contemporary computer and video technology in physics. A microcomputer is used in the areas of force, motion, temperature, and radiation to perform data collection, analysis, and graphing; and is used to construct, execute, and display physical simulations in mechanics. Stop- action videotapes are used to collect data in projectile and rotational motion. Microcomputers and video technology provide immediate feedback that makes possible a larger number and variety of trials and motivates students to probe in greater detail.The grant is providing software and hardware for six, networked, color Macintosh II workstations equipped with a Universal Lab Interface with appropriate sensors and probes. The grant also is providing a shared LaserWriter II, modem, CD player, scanner, high resolution video camera, and playback deck. This support revitalizes the physics courses at JJC and provides current technology much more quickly than would otherwise be possible.This project is encouraging students to continue study or to support science by improving their experiences in physics, increasing science literacy, helping to prepare JJC's physics courses for the next century, and stimulating other community colleges to adapt this approach.NSF grant funds are being matched with funds from non-federal sources.